Time-Frequency and Applied Harmonic Analysis

Heil
DMS-0806532

Four main directions are selected for advancement in this
project:
(a) Time-frequency independence conjectures and related topics;
(b) Quantification of localization for nonabelian coherent state
frames;
(c) Applications to affine pseudodifferential operators
(broadband time-varying filters);
(d) Multiwavelet development of the shearlet transform and
construction of compactly supported shearlets.
Each of these interrelating topics contains deep mathematical
questions directly related to fundamental issues in redundant
representation and transformation of signals. Each topic reaches
into a broad range of areas in mathematical analysis, and
progress requires a synthesis of different ideas from both
abstract analysis and applied harmonic analysis, including
pseudodifferential operator theory, noncommutative Banach
algebras, and new forms of multiresolution analysis suitable for
two-dimensional and higher signal processing.

The problems addressed in this project concern fundamental
questions regarding the basic mathematical tools that underlie
modern signal processing, including such applications as wireless
communications, radar, seismic sensing, and image processing.
Progress on these topics yields applicable mathematics with
potential impact for real-world scientific and engineering
programs. All aspects of this work are intimately tied with
educational endeavors, both at the graduate and undergraduate
levels. Students of the investigator cooperate directly in this
research, receiving a breadth and depth of knowledge and
experience that will foster a continued commitment to
cross-disciplinary interactions among mathematics, physics, and
engineering. Topics related to this project and progress on the
problems of the project are incorporated into courses and
seminars directed by the investigator. The investigator
continues his strong record of producing graduate students,
working with undergraduates, mentoring postdocs, producing Ph.D.
students from underrepresented groups, and encouraging
underrepresented groups to pursue research.